"Pathways to the Past" - A Discovery Center

Dorand Shannon New Orleans' Audubon Zoological Garden will design and construct a 3,000 square foot exhibition "Pathways to the Past" that will utilize interactive exhibits to highlight the ancestral link between birds and reptiles and to explore the ensuing development of each species. The permanent exhibition, occupying a prominent place in the newly remodeled Odenheimer building, will be used both by 125,000 school children visiting the zoo each year and for the more than one million regular visitors. More than a third of the residents of New Orleans are minority group members. Zoos are increasingly emphasizing their science communication and science education mission in the context of zoological research and species preservation. They have a substantial need for improved educational resources to better meet the needs of the large and broad cross section of their visitors. The Audubon Zoo's specific plans for interactive exhibits are well thought out, with many connections back to the living collection of the zoo. They have assembled an advisory committee and consulting team that includes scientists, zoologists, educators and science education specialists. They plan a variety of educational materials in support of the exhibition, and will communicate the results of the project to other zoos through reports, publications and presentations. More than $213,000 in direct matching support will be provided by private sources. An FY87 award of $185,915 to the Audubon Zoological Garden is recommended.